FT NMR Spectroscopy in the Undergraduate Laboratory

This project is purchasing a 200-MHz Fourier Transform nuclear magnetic resonance (NMR) spectrometer. This equipment allows for the implementation of more sophisticated experiments, through the cumulative development of concepts during the laboratory sequence. This project is also developing new experiments for organic, inorganic, and physical teaching laboratories. This equipment purchase addresses a number of problems related to the use of NMR as a teaching tool. NMR is often considered an organic technique, and students are generally not exposed to its utility in other areas of chemistry. In addition, non-chemistry-majors often do not use the technique after a general introductory structural determination experiment during which, with few exceptions, advanced techniques are not introduced.